REU: The Amino Acids of the Floral Nectars of Northeastern Plants and Their Role in Attracting Pollinators

This is a Research Experiences for Undergraduates project. It provides research experiences for ten students at State University of New York College at Fredonia. Students will participate in projects involving studies of plant-pollinator interactions.